Ecoinformatics Project: Semantics Management and Semantics Services

Emerging semantic technologies are enabling us to focus on environmental and health concepts and their interrelationships in new ways. This project will develop an extended metadata registry prototype, populate it with environmental, health and geographical metadata, develop semantic services for querying and test the usability and performance. The registry will support the integration of taxonomies, ontologies, controlled vocabularies, semantic relations and advance data element specifi9cation, all I the context of water information. This multi-disciplinary project will work through a coalition of research efforts coordinated internationally. The work should lead to advances in both standards and technologies that address the limitations in semantic technologies that need to evolve with laws and regulations as well as semantic usage. The effort will provide technical leadership in coordinating several ecoinformatics projects, helping researchers to collaborate. The techniques, technologies and designs developed by this project will hae immediate application within the environment and healthcare communities. The area also has potential for impact on data sharing. Results will be disseminated through open source software for the registry and through the ISO/IEC Standard 11179.